Student Participation in 3rd International Conference on Design Science Research in Information Systems & Technology and Associated Doctoral Consortium

ABSTRACT
0812795
Vijay K. Vaishnavi
Ga State U Res Fdn

Student Participation in 3rd International Conference on Design Science Research in Information Systems & Technology and Associated Doctoral Consortium
This proposal seeks funding for supporting and encouraging research students interested in design science research and the science of design within the information systems, information technology, and computer science disciplines. Emphasis will be placed on supporting students from underrepresented groups. The consortium will take place as a component within the 3rd International Conference on Design Science Research in Information Systems and Technology (DESRIST 2008) being organized by Georgia State University, May 7 through 9, 2008 in Atlanta, GA.